Development of a High Resolution - High Sensitivity Ion Microprobe Facility for Geochemical Applications

9307407 Harrison This award provides funding for the installation and testing of a new prototype secondary ionization mass spectrometry (SIMS) system recently acquired by the Department of Earth and Space Sciences at the University of California, Los Angeles. The new SIMS instrument is designed to optimize capabilities for isotopic analyses of the uranium-lead system with spatial resolution on the order of ten micrometers for the purpose of dating very old geological events. After the period of installation and testing the UCLA machine will be operated as a national facility available to the U.S. geoscience research community. ***